Mathematical Sciences Computing Research Environments

DMS-9707768 The Department of Statistics at the Carnegie Mellon University will purchase computer equipment which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects in mathematics, including in particular: Exploratory analysisof massive data sets Fault Diagnosis in VLSI Manufacture Disclosure Avoidance and Intruder Modeling for Census-Like data Comparative Analysis of Functional Magnetic Resonance Imaging Data Sets